Workshop: Advanced Study Institute on Computational Methods for Engineering Analysis and Design, Madras, August 2-11, 1993, Award in Indian and U.S. Currencies

Description: This proposal requests support for the travel of six U.S. scientists to the Advanced Study Institute on Computational Methods for Engineering Analysis and Design, at the Indian Institute of Technology (IIT), Madras, August 2-11, 1993. The organizers are C.S. Krishnamoorthy, of IIT and J.N. Reddy, of Virginia Polytechnic Institute and State University. India's Department of Science and Technology is a key sponsor and will support all invited speakers from within India. The purpose is to have a detailed exchange of information among prominent scientists on the most recent advances in computational methods for the analysis and design of engineering systems in aerospace, civil, mechanical, and manufacturing. Advances such as the development of powerful numerical tools, the application of artificial intelligence to design, and the use of special modeling techniques have contributed to the emergence of engineering design as an area of specializa- tion. In research, too, increasing attention is devoted to developing design theory and models for design processes. The workshop aims at synthesizing and presenting state-of-the art computational methods required for analysis and design of engineering systems. Scope: The workshop should lead to a meaningful exchange of knowledge and expertise in the areas of analytical modeling, advanced comput- ational methods and software for use in practical designs in several disciplines of engineering. High level academics and practicing engineers in India and the U.S. will review developments in the field, identify future research and development activities and formulate collaborative research projects of mutual interest to the U.S. and India. The proceedings of the workshop will be a state-of- the-art publication that can be expected to be of immense value to researchers and practitioners in academia and industry, and to students engaged in analysis and design of engineering systems.